Applications of Computer-Extended Series

Computer-extended series, developed from perturbation analysis, will be utilized to resolve a number of paradoxes in certain flows. These are as follows: Flow in a coiled pipe; flow separation in a corrugated pipe; boundary layer separation in both steady and unsteady flow; the role of transcendentally small terms in series expansions for flows at low Reynolds number; and viscoelastic flows with convergence problems at critical values of internal relaxation time. In each case, there exist puzzling discrepancies and paradoxes which have prevented the utilization of large scale computations with confidence in their results. *